Facilitating the Framework: Developing a Model Museum Program to Facilitate Science Education Reform in the Schools

9355631 Humphrey The Exploratorium is developing a model program that demonstrates the vital role science museum exhibits can play in supporting formal science education reform. The development of exhibitions and enhancement activities is based on the Science Framework for California Public Schools and the emerging National Science Education Standards. The project includes: A series of four museum exhibitions (with a total of 60 exhibits) based on the Science Framework themes of Patterns of Change, Stability, Scale and Structure, and Systems and Interactions Publications (Exhibit Guides and Pathways) for each collection A series of workshops and evening events for teachers, families and students A symposium, video and Internet resource for museum and education professionals An important feature is an information desk and resource kiosk to inform teachers, parents and the general public about science education reform efforts. The project aims at 5,000 teachers, 32,000 parents and caregivers, 140,000 students and 1,320,000 members of the general public. ***